Long Time Behaviors of Large Solutions of Hyperbolic Balance Laws

The object of this research is to investigate the long time
dynamics of large solutions for nonlinear hyperbolic balance
laws with lower order dissipations where the theory
is most lacking. The research will concentrate on problems for
large solutions and strong waves. This often encounters the
investigation of qualitative behavior of weak solutions without
any regularity. First, we will verify the Darcy's law
for porous media flows as long time asymptotic of damped Euler equations.
Next, we plan to establish nonlinear stability of
elementary waves for compressible Euler equations with relaxation
for traffic flows and then extend the results obtained that far to more
general dissipative hyperbolic balance laws. The study of these problems
requires new techniques that will be developed in this project.

The work deals with mathematical analysis of a class of partial
differential equations describing nonlinear flows, waves and materials.
The research seeks better understanding on qualitative behaviors of
solutions to systems with important applications to
porous media flows, traffic flows and semi-conductor devices.
The results of this research are expected to benefit the
study of compressible flows in areospace sciences, traffic control
systems, semi-conductor devices industries and the energy industries.